Student Travel Support for SDR'11-WInnComm

Up to 30 students will receive travel grants to attend the 2011 Wireless Innovation Forum Conference on Communications Technologies and Software Defined Radio, to be held in Washington DC, November 29th - December 2nd. The grants will provide partial support for travel, housing, and conference attendance. Software-defined radio technology will become increasingly important as the foundation of wireless communications, and attendance at the conference will expose students to many technical and practical aspects of the technology.